REU SITE: Research and Leadership Enabling Advanced Discoveries (RLEAD) in Chemical Nanoscience for Undergraduate Students

This Research Experiences for Undergraduates (REU) site award to Rice University, located in Houston, Texas, supports the training of 10 students for 10 weeks during the summers of 2027-2029. In this program, supported by the Chemistry Section and the Department of Defense in partnership with the NSF REU program, participants pursue collaborative research projects focused on chemical nanoscience and nanotechnology. The site drives fundamental research in the national priority areas of advanced manufacturing and semiconductor technologies, to help create high-performance materials, nanoscale circuits, and the next generation of quantum devices. Participants also take part in professional development and ethics training, leadership and science communication workshops, and build networks through departmental and Gulf Coast-area research symposia in preparation for graduate school and professional careers. This project advances U.S. competitiveness, security, and innovation by training STEM experts to meet vital academic and industry demands in the microelectronics, materials science, and advanced manufacturing sectors.

The participating students develop individual projects in the varied fields of chemical nanoscience that provide the fundamental physical and materials chemistry underlying advanced manufacturing, nanoscale circuits and devices, and semiconductor technologies. The projects include synthesis and assembly of nanomaterials, catalysts for bond activation, nanoscale imaging, and study of supramolecular networks using optical scanning tunneling microscopy at solid and liquid interfaces. The professional development series focuses on reading scientific literature, writing abstracts, resume building, designing oral and poster presentations, and guest speakers on research fellowships, career opportunities, and the graduate school application process. To support leadership and career readiness, students participate in personalized leadership modules at the DOERR Institute at Rice University and engage in networking opportunities with faculty and graduate student mentors.